Signal Mediated Growth Control by Osmotic Stress

This project is focused on two mutant lines of the yeast, Saccharomyces cerevisiae, that respond anomalously to hyperosmotic stress. The mutants are known as HOG1 and HOG4, because of their altered cell cycle response in a High Osmolarity Glycerol assay. The altered genes in these mutants resemble genes that encode a group of protein kinases known to be involved in signalling events during cell growth and division. Osmotic shock is followed by the tyrosine phosphorylation of the HOG1 protein and suggests that osmotic stress responses are mediated by changes in protein phosphorylation. Protein phosphorylation changes appear to underlie the signal transduction chain that follows exposure to hypertonic solutions. The experimental plan is directed toward the characterization of intermediate steps in the signal transduction pathway that involve the HOG1 and HOG4 proteins, and in an analysis of changes in cell cycle progression in these mutants after hypertonic shock. %%% This project is directed toward the study of how cells sense and respond to osmotic stress. Hyperosmotic treatment in yeast normally results in cell cycle arrest, but in two recently-discovered mutants, arrest does not occur. The altered genes in these mutants have provided clues to the signal transduction chain that is activated during the hyperosmotic stress response. This project will provide important information on the signal transduction pathway responsible for the osmotic stress response in yeast, and clues to the underlying regulatory cascades that are activated by osmotic stress in other kinds of cells.